February Fourier Talks, 2012

Title: February Fourier Talks 2012

This award provides support for the seventh meeting in the February Fourier
Talks (FFT) series. The 2012 FFT will be held February 16-17, 2012, at the
University of Maryland, College Park. The FFT is a high-level forum for
harmonic analysts to bring their work to scientists from industry and
government agencies. In addition it allows experts in applied and pure
harmonic analysis to get familiar with the latest problems in need of
mathematical formulation and solution. Finally, it introduces young
mathematicians and scientists to applied and pure harmonic analysis. More
information, including a list of speakers and abstracts, registration
information, and an archive of past conferences, can be found at the
conference webpage: www.fft2012.org.

The February Fourier Talks directly encourage dialogue and collaboration
between mathematicians and scientists working in industry and government.
The structure of the conference consists of three main lectures and sixteen
30 minute invited talks. The conference encourages and financially supports
participation by students, recent Ph.D. recipients, and members of groups
underrepresented in mathematics.